CCM8: Eighth International Symposium on Inorganic Carbon Utilization by Aquatic Photosynthetic Organisms, May 27 - June 1, 2013, New Orleans, Louisiana

This project will provide support for graduate students, postdoctoral researchers and early career investigators to attend the Eighth International Symposium on Inorganic Carbon Acquisition by Aquatic Photosynthetic Organisms. This meeting, better known by its acronym, CCM8, will take place on the Loyola University campus in New Orleans, Louisiana from May 27 - June 1, 2013. The interdisciplinary topic of this meeting is the study of how various algae, aquatic plants and photosynthetic bacteria acquire CO2 for photosynthesis using carbon concentrating mechanisms (CCMs). Speakers will address topics ranging from how algae will respond to global climate changes to how CCM components might be used to improve photosynthesis in crop plants. Funds will be used to defray costs for meeting attendance. Women and underrepresented groups will be especially encouraged to apply for this assistance. The goal of this funding is to make it easier for young scientists to attend the meeting and to encourage young researchers to continue working in the exciting, growing field of carbon concentrating mechanisms.